International Continental Scientific Drilling Program (ICDP)

9615720 Emmermann This award transfers funds to the GeoforschungsZentrum (GFZ) in Germany for NSF's membership fee in the International Continental Scientific Drilling Program (ICDP). On February 26, 1996, the NSF and the GFZ (a Governmentally funded, public law Foundation of the Federal Republic of Germany) signed a Memorandum of Understanding on Implementation, Management and Operation of the ICDP. This MOU is an Annex to the Agreement between the NSF and the Federal Ministry for Education, Science, Research and Technology of the Federal Republic of Germany (BMBF) on "Cooperation in Research in the Geosciences." The MOU stipulates that each member of ICDP will pay an annual membership fee to the Executive Agency (the GFZ) which will be commingled to provide the base funding for the ICDP. These funds will be used for support of overall scientific planning, management, and operation of the ICDP. ***